Cellular Automation Simulation of Muscle Fibers

; R o o t E n t r y F ZpÕ C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l ZpÕ ZpÕ 0 ! " # $ % & ' ( ) * + , - . / 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I J K L M N O P Q F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e z z p p p p p p z & 1 x W T 3 & p & p p p p p x p p p p . Estimation of genetic relatedness, including identification of parents, is central to many kinds of biological studies. Relatedness and parentage can both be estimated through the use of genetic markers, though the rarity of good markers has limited this approach for many organisms. However, new kinds of markers, including multi-locus fingerprints, minisatellites, microsatellites, and RAPD's, now make accurate kinship assessment a practical goal for just about any species. This award will result in two computer program becoming generally available to the research community. The first, RELATEDNESS, focusing on statistical estimates for genetic relatedness, will be a rewritten and restructure version of a program that has been available for several years. The second program, PARENTAGE, will be specifically for paternity and maternity analysis. It will be designed to make maximum use of the different kings of prior information available in studies of vertebrates, social insects, plants and other organisms. This award is being supported by the Computational Biology Activity, Animal Behavior, and Population Biology programs. { S u m m a r y I n f o r m a t i o n ( Oh +' 0 $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT Estimation of genetic relatedness, including identification of parents, is central to many kinds of biological studies. Relatedness and parentage can both be estimated through the use of genetic markers, though the parity of good markers has limited this Bertha L. Luster Bertha L. Luster @ G Õ @ @ G Õ @ Microsoft Word 6.0 2 ; y z u c y z !. ! K @ Normal a c " A@ " Default Paragraph Font { z . Bertha L. Luster \\CLM2\BIRWORK\QUELLER.ASC @HP DeskJet 500 LPT1: HPDSKJET HP DeskJet 500 D L f , , d s HP DeskJet 500 D L f , , d s 1 Times New Roman Symbol & Arial " V h { e { e $ 3 Estimation of genetic relatedness, including identification of parents, is central to many kinds of biological studies. Relatedness and parentage can both be estimated through the use of genetic markers, though the rarity of good markers has limited this Bertha L. Luster Bertha L. Luster ; ;